Egonomics: Self-Confidence, Motivation, and Self-Presentation in Social and Economic Interactions

The maintenance and enhancement of self-esteem has long been identified as a fundamental human
concern, playing a critical role in motivation, affect, and social interactions. This project brings the issue
of self-knowledge into the realm of economic analysis, and shows that this has important implications for
how agents process information and make decisions in areas as diverse as education, investment, contracts
and bargaining, or family and workplace relations. Conversely, the tools of economic modelling can help
understand that a number of puzzling facts and behaviors documented by psychologists are often quite
rational, and determine when these strategies are effective and when they backfire.
The first premise of the model is that people have imperfect knowledge of their own abilities and other
enduring characteristics, and constantly learn about them from experience and interactions with others.
The second premise is that these self-perceptions affect the individual's incentives to undertake or persevere
in a variety of tasks; in most activities, a higher self-confidence in one's ability or willpower enhances the
motivation to act. This, in turn, generates a motive for the manipulation of the individual's self-image,
both by himself and by others. First, an individual suffering from a bias towards instant gratification (time
inconsistency) has a vested interest in enhancing and protecting his self-confidence, so as to counter his own
tendency to give up too easily (procrastinate, succumb to short-term temptations, etc.). Alternatively, the
manipulator can be another person (parent, teacher, spouse, friend, colleague, manager) who is eager to
see the individual persevere and succeed in the task at hand.
The first part of the project focuses on individual behavior and beliefs, explaining in particular why
people value self-confidence, and how this concern affects their cognitive and decision-making processes.
It helps account for why rational individuals often choose to remain ignorant about their own abilities, or
"blind" to important signals from their environment; and why they sometimes deliberately impair their
own performance or choose overambitious tasks where they are doomed to fail (self-handicapping). Another
central focus of the research is the phenomenon of selective memory or awareness, that is, people's
tendency to remember ego-enhancing information more than ego-threatening ones (e.g., successes more
than failures). In turn, this helps account for the widely documented fact that most people have overoptimistic assessments of themselves (self-serving beliefs). A formal welfare analysis then allows us to evaluate whether such "positive thinking" and similar forms of self-deception are really helpful to the individual, or whether it is ultimately better to always "be honest with yourself". The project also sheds light on why people sometimes attempt to lower their own self-confidence.

The second part of the project extends the analysis to imperfect knowledge of one's strength or weakness
of will. This allows us to understand how the personal rules that people set for themselves (diet, exercise
regimen, moral code etc.) can be self-enforcing, and help them control their impulses. It can also explain
the "precedent-setting" role of lapses in adherence to a rule, and how the fear of subsequently "losing faith
in oneself" helps the individual achieve self-discipline. Another issue addressed is how the self-monitoring
which underlies the effectiveness of rules is undermined by opportunistic distortions of memory and excuse-
making. Last but not least, the model helps account for the occurrence of excessively "legalistic" rules
which result in compulsive behavior, such as miserliness, workaholism, or anorexia.

The third part of the project turns to interpersonal settings and contractual relationships. First, it
provides a formal economic analysis of the conflict between extrinsic and intrinsic motivation emphasized
by a large literature in psychology and sociology. It shows in particular that rewards for performance
offered by a principal (manager, parent) can indeed have, through their impact on the self-image of the
agent (worker, child), or his perception of the task, "hidden costs" which make them only weak reinforcers
of the desired behavior in the short run, and negative reinforcers once they are withdrawn. The model also
sheds light on when it is actually the case that empowering an agent increases his motivation and effort,
while closely monitoring his performance has the reverse effect. Another puzzle is that while boosting
others' self-esteem is a pervasive phenomenon, people also often criticize or downplay the achievements of
their spouse, child, colleague and other partners on whose effort they depend. The project analyzes such
ego-bashing as reflecting battles for dominance (real authority) within the relationship. Finally, it studies
situations where the agent has private information and engages in variety of self-presentation strategies
such as pleas for leniency, self-deprecation, excuse-making, self-promotion, intimidation, ingratiation, and
the like.